CISE Research Instrumentation: A Next-Generation High Performance Network of Commodity PCs

CDA 9529418 Ibarra, Oscar H. Rinard, Martin C. Schauser, Klaus E. Yang, Tao University of California, Santa Barbara A Next-Generation High-Performance Network of Commodity PCs The proposed instrumentation consists of a collection of commodity personal computers (PCs) connected by a commodity ATM network. This computing platform supports four experimental research projects in the area of high performance parallel and distributed systems. The first project investigates efficient communication primitives for cost-effective commodity computing and networking platforms. The objective is to enable important parallel computations to execute efficiently in this computing environment. The second project investigates a new parallelizing compiler technique called commutativity analysis. The objective is to extend the range of parallelizing compilers to include computations that manipulate complex pointer-based data structures. The third project investigates scheduling and run-time supporting techniques for irregular scientific computations. The objective is to understand how to map these computations efficiently onto a modern parallel computing environment consisting of commodity hardware components. The final project investigates issues in developing a scalable WWW server for digital library applications. The objective is to strengthen the server's processing capabilities to match huge expected increases in simultaneous access requests from the Internet. The main research activity in all of these projects is developing, testing and measuring software. The instrumentation provides the hardware platform required to perform these activities.